AOC: The Dynamics of Secessionist Regions: Eurasian Unrecognized Quasi-States after Kosovo's Independence

Quasi-states are secessionist regions that have established internal territorial sovereignty but lack widespread recognition and legitimacy as states. Despite their tenuous and contested status, such regions have long been features of world political maps. A U.S-Russian research team will focus on four quasi-states in the Balkans-Black Sea region - Kosovo, Transdniester Moldovan Republic (TMR) in Moldova, Abkhazia and South Ossetia in Georgia. These sites were chosen because of research access, contrasting historical experiences, sources of dispute between Russia and the Euro-Atlantic community, and the varied implementation of international norms of refugee protection and recognition of self-determination. Two fundamental research and policy concerns are raised by quasi-states. First, how and why do certain quasi-states endure and, second, why are some more successful at accumulating legitimacy than others?

The contested declaration of independence by Kosovo in early 2008 and concern about a precedent effect render these questions particularly timely. The establishment of internal and external legitimacy in the wake of wars that defined the political unit is a key factor in accounting for the robustness of quasi-states. The specific research questions include: a) What is the character and localized distribution of the agricultural, industrial, trade, social and political dynamics of the unrecognized quasi-states? b) What factors (war experience, governance structure, nation-building and identity construction, migration or displacement, border relations and international control) helps explain these distributions? c) How do state-aspirant elites work across a variety of scales to promote legitimacy, in the wake of the Kosovo precedent? d) How appropriate is it to make comparisons between these 4 cases? e) How does the enduring of quasi-states affect global norms concerning ethnic cleansing and violence?

To overcome potential difficulties in accessibility and reliability, a multi-methods data gathering approach has been adopted to examine the internal legitimacy of quasi-states across a variety of scales. This includes public opinion sampling of about 1000 persons in each study site (among both residents of the quasi-states and the displaced populations), focus group discussions (including about 400 persons in all) and elite interviews. Public and unpublished statistical data are also analyzed in a geographical information system, incorporating land cover change derived from repeat Landsat satellite imagery over the past 20 years.

The four frozen conflicts are outcomes of civil wars in the 1990s that were characterized by ethnic cleansing, destruction of infrastructure, and deteriorating relations between the countries from which the secessionist quasi-states splintered and external supporters (Russia in three of the cases). The quasi-states themselves are often marked as grey zones of smuggling (especially drugs and weapons), money laundering, border violations, transit points of terrorists, and refuges of criminals beyond the reach of international law. Without more information about the conditions inside the quasi-states (level of legitimacy with their own populations, the extent and nature of their contacts with the supporting countries, the willingness of the populations to accept territorial compromises or other settlement options, the level of inter-ethnic distrust, and border controls), policy formation and implementation is significantly removed from "facts on the ground".